Core Mass Spectral Analytical Facility for Environmental Chemistry

9977757
THOMPSON

This award provides funding for the purchase of a Liquid Chromatographic Mass Spectrometer analytical system. This equipment will become part of a core university facility accessible by faculty and student researchers at the University of Montana, Bozeman and at other neighboring institutions. Funds are also provided for two years of salary for a technical support person to maintain the equipment, instruct researchers in its use, and assist in analysis and interpretation of data obtained. Establishment of a core Mass Spectral Analytical Facility for Environmental Chemistry will be very important for the university in enhancing the research capabilities of existing faculty and students and recruiting high quality faculty and especially graduate students in the future. The equipment will be important to the success of numerous research projects seeking answers to questions dealing with environmental quality.